SuperQuest: The North Carolina Connection

This award supports the North Carolina SuperQuest competition for 1991. The objective of the competition is to introduce computational science into the classroom at all educational levels and to encourage more student interest in studies and careers in science, engineering and mathematics. All of the high schools in North Carolina were invited to enter the competition. The competing teams will consist of four students and two teachers. The subject matter will be a scientifically sound and computationally challenging problem that they can solve using the supercomputing resources at the North Carolina Supercomputing Center (NCSC). There will be five winning teams. These teams will attend a 2 and 1/2 week summer institute at NCSC in June, 1991. During the Summer Institute the 20 students and 10 teachers will be trained to use the NCSC supercomputing resources and graphics workstations available at NCSC to design a computational solution to the problem they have proposed.